Research in Nuclear Physics with Undergraduates at Hope College

The Hope College Nuclear Group has begun to take advantage of the Radioactive
Nuclear Beams (RNB) available at Notre Dame and Michigan State University.
Specifically, this project will undertake measurements of the 3n decay channel
following the fusion of 6He with 209Bi to study the effects of the
neutron-skin character of 6He, the fusion cross section of 8Be with 28Si to
examine the effects of a possible proton-skin, and the electromagnetic
dissociation of fissile systems induced by RNB. This proposal will also
support collaborative participation in RNB experiments proposed by others from
Notre Dame, Oak Ridge National Labs, and Michigan State University.
Undergraduate students from Hope College will participate in all aspects of
the experiments. Our experience over the years demonstrates that
undergraduate research enhances a student's education and preparation.